Space Weather: Sources of Ionospheric Variability: A Coordinated Data and Modeling Approach

A two-year effort is proposed to investigate the causes of ionospheric variability using a state-of-the-art physical model and a large database of ionospheric observations. The HAO/NCAR Thermosphere-Ionosphere-Mesosphere-Electrodynamic General Circulation Model (TIME-GCM) has recently been coupled to the NCAR Community Climate Model - Version 3 (CCM/3) to assess the influence of Tropospheric-Stratospheric input to the upper atmosphere. The first prolonged run of the merged TIME-GCM/CCM3 was for a 365 day period characterized by constant solar flux and fixed auroral and magnetospheric inputs. The output of this simulation offers an extraordinary opportunity to conduct a series of validation studies using existing ionosonde data from the archived global network. Moreover, the opportunity to access diagnostic parameters beyond the peak density (NmF2), such as thermospheric densities, temperatures and winds and electrodynamical drifts, provides the information needed to interpret the results using known physical processes.